Tools for Environmental Cleanup: Engineered Plants for Phytoremediation; September 2002; Seattle, Washington

0224721
Strand
This grant provides support for a workshop on the subject of creating transgenic plants for use in phytoremediation. While much progress has been made in recent years on genetic modifications of plants for remediation, the problems of heavy metal uptake and accumulation in levels useful for phytoremediaton remain. For organic phytoremediaton to be useful, a wide variety of trees must be transformed and activities optimized. This workshop will provide an opportunity for scientists working in this area to present their most recent findings and to discuss how this potentially powerful technology might best be advanced. The workshop is planned for September 2002 in Seattle, Washington.